Manufacturing Methods Laboratory

The manufacturing methods course consists of four modules-- Manufacturing Techniques, SPC, Machine Capabilities, and CNC/CAM. This project provides in-house equipment for the CNC/CAM module, a CNC mill and associated auxiliary equipment.